Automatic Generation of Incremental Environments for Digital Design

Existing incremental switch-level simulators are interpretive in the sense that, upon stimulation of a transistor sub-network, they use a graph representation method to dynamically evaluate its function. In contrast, compiled switch-level simulators hardcode their evaluation procedures into fast boolean operations and exploit the bit parallelism inherent in machine words. This research examines compiled simulation techniques in the context of incremental capture and simulation. A prototype system capable of automatically generating compiled incremental resimulators is being built. This generation system is designed to interface directly with an incremental capture environment system and to generate incremental resimulators that will interface directly with ICE. Specific problems being addressed include: (1) using boolean logic equations and/or binary decision diagrams as a basis for incremental switch-level simulation; (2) exploiting the user-defined hierarchy to accelerate incremental circuit analysis: (3) investigate bit parallelism in incremental simulation; (4) automatically generate compiled incremental resimulators; and (5) explore time and space efficient methods for storing design information and history traces (data compression and data persistence).